Structure-Function Studies on the Sulfate Activating Enzymes

9904003
Segel, Fisher
This research examines the structural features underlying the catalytic
and regulatory properties of the "sulfate activating enzymes", ATP
sulfurylase and APS kinase. These enzymes catalyze, in order, the first two
reactions in the assimilation of inorganic sulfate. The investigation focuses
on the homo-hexameric ATP sulfurylase of Penicillium chrysogenum,
which is allosterically inhibited by PAPS. This feedback process is unique
to filamentous fungi, very likely reflecting the fact that PAPS is a major
branch point metabolite in fungi, but not in other organisms. The
allosteric domain of fungal ATP sulfurylase is located in the C-terminal
region of the polypeptide chain and has a high degree of homology with APS
kinase. Experiments are designed to determine (a) the relationship
between the three dimensional structure of the allosteric domain and that
of true APS kinase and (b) the structural nature of the transition induced
by the allosteric effector. P. chrysogenum APS kinase, a homodimer, is
also be studied in order to establish the structural basis of (a) the high
specificity for sulfonucleotides, (b) the compulsory ordered binding of
substrates (is it kinetic or structurally-based?), and (c) the relationship
between subunit association and formation of the active site.

Sulfur is one of the six major elements that compose living cells. Key
biological molecules that contain sulfur include the protein amino acids,
cysteine and methionine, and the vitamins pantothenic acid, biotin, and
thiamin. Most of the sulfur on the Earth's surface (in the soil and oceans,
etc.) is present as inorganic sulfate. This project focuses on the structures
and functions of ATP sulfurylase and APS kinase, enzymes that catalyze
the first two reactions in the incorporation of inorganic sulfate into biomolecules. The enzymes will be purified from the filamentous fungus, Penicillium chrysogenum (which produces another important sulfur compound, penicillin.)